Dissertation Research: The Role of Primates in Determining Forest Composition: Specific Tests with Seed Dispersal

Although there is ample evidence that primates consume and disperse viable seeds of many plant species, there are few data top illustrate the importance of their role as seed dispersers in determining the dynamics of tropical forests. This study will provide an assessment of the role primate seed dispersal plays in determining the structure of the forest found in Kibale National Park, Uganda. A sixteen month study will be conducted at three sites in Kibale that differ markedly in the density of primate seed dispersers Two primate-fruit interactions have been selected: (1) Uvariopsis congensis appears to rely on dispersal by the entire frugivorous primate community, while (2) Monodora myristica is dispersed by only the largest primates in Kibale. The densities of the primate seed dispersers will be contrasted with the abundance of adults, saplings, and seedlings of these two species among the sites. The possibility that the pattern of primate seed dispersal is masked by other fruit-fugivore interactions will be assessed.